Making the Case for Technological Literacy

Wulf 9814135 The National Academy of Engineering and the National Research Council's Center for Science, Mathematics, and Engineering Education propose to increase public awareness for the need for technological literacy. This is achieved through three workshops and a symposium to define technological literacy, its importance to the nation and how it is best achieved. The workshops and commissioned papers on Teaching, Tools and Resources, and Implementing Technological Literacy facilitate constructive dialogue and information exchange among the principal stakeholders -teachers and educators in K-16, instructional materials developers, businesses and foundations. The four interconnected challenges to achieving technological literacy are a.) increasing the public understanding of technology, b.) infusing K-12 teaching with technology-relevant curricula, materials, assessments and teacher resources, c.) creating stronger and more meaningful links among educators, policy-makers, industry leaders and foundations, and d.) effectively integrating educational technology into the classroom. The outcome is a widely disseminated, visible, well supported document that "makes the case" for technological literacy and a plan for achieving it.